RUI: Protein-Lipid Interactions

This research will focus on interactions of phosphatidylinositol-specific phospholipase C (PI-PLC) and sphingomyelinase with various lipid membrane systems. The major points to be addressed are the mechanisms of action of these enzymes, substrate specificities, the way in which the enzymes interact with lipid surfaces and the nature of activation by the lipid interface. With this RUI award the Biophysics Program is supporting the research of Dr. Gary O. Spessard of the Department of Chemistry at St. Olaf College. Professor Spessard will focus his work on understanding the interactions of enzymes with lipid substrates at an interface. The research will study the recognition processes, the mechanisms for enzyme binding at an interface, the activation processes at the interface, the regulation of enzyme activity and the mechanism of catalysis.